Oxygen Isotope Studies of the Sources of Basaltic Volcanism: A Reevaluation Using Laser Fluorination of Phenocrysts

9628142 Stolper Oxygen isotope ratios can provide important constraint on the origins of chemical and isotopic heterogeneity in the mantle sources of basaltic lavas. Conventional measurements of whole-rock specimens and glasses are typically significantly influenced by the effect of sample alteration and isotopic fractionation during magmatic processes. The P.I.s propose to use laser fluorination techniques to undertake a comprehensive survey of oxygen isotope variations in phenocrysts (primarily olivine) from arc-related lavas. Results thus far indicate that laser fluorination technique provides an accurate and precise means of analyzing 18O/16O ratios in olivine and other phenocrysts. The work will involve a survey of arc-related lavas, emphasizing basaltic back-arc lavas that can provide information on the mantle "wedge" above subduction zones.